Mathematical Sciences: Asymptotic Approximations in Probability and Statistics

Various problems of asymptotic approximation will be studied. A resolution of the St. Petersburg paradox will be proposed. The resolution will be achieved through an understanding of the nature of the distribution of the cumulative gain in a sequence of games and their lightly trimmed variants, when a fixed number of the largest gains are withheld from the gambler. Several associated general problems concerning domains of partial attraction and infinitely divisible distributions and their trimmed versions will also be studied. This research will attempt to find a resolution to the St. Petersburg paradox, a problem which was first studied in the early eighteenth century. The paradox involves determining an appropriate fair price for playing a game of chance.